Mathematical Sciences: Applied Mathematics Workshop for Materials Studies and Industrial Applications

9629956 Cao The philosophical theme of the meeting hinges on exploiting the analogy between piezoelectricity of ferroelectric ceramics, piezocomposites and flexoelectricity of certain liquid crystals. This analogy will embrace experimental, modelling, computational, analytic as well as industrial problems and mathematical methods arising in the study of such solid and liquid materials. It will simultaneously address issues related to processing and applications of polymeric liquid crystals, functional ceramics and composites. In a broader sense, solid materials with electromechanical or magnetomechanical coupling belong to a general category of ferroic materials. %%% The purpose of this interdisciplinary conference is bringing together researchers from interacting areas of Materials Science, including Physics and Applied Mathematics, with special focus on the latest scientific and industrial developments in materials which are currently used in computer display devices, smart structures, sensing and control devices. Through the interchange among different disciplines, we hope to channel the expertise of mathematicians and physicists to more practical problems and to form new constructive research groups to tackle such problems. Details of the workshop information can be found in the following World Wide Web address: http://www.math.psu.edu/mcc/imm.html ***